1995 Gaseous Electronics Conference Student Support Berkeley, California

9527684 This grant is for support of students and young researchers to attend the 1995 Gaseous Electronics Conference in Berkeley, California.